Adaptive Methods for Nonparametric Classification and Regression/Supervised Learning, Inference in HMM and State Space Models and Inference in Semiparametric Models

In non and semiparametric inference Bickel, in collaboration with
Ritov and others, proposes to study how an increasing but
proportionally vanishingly small cross validation sample can be used
systematically to optimize supervised learning (classification and
regression) procedures, for example ADA BOOST. Further they propose
to study a unified theory for testing of semiparametric hypotheses
and develop efficient tests for bioequivalence. In dependent data
models, they propose to extend previous results on Hidden Markov
models to state space models and study how procedures obtained by
fitting and use of approximate likelihoods such as particle filters
behave.

The investigator and collaborators propose to analyze and develop new
effective methods for identifying (by machine) the type of a newly
perceived object or predicting some feature from historical
information. This ranges from machine reading of hand written zip
codes to predicting travel times of cars from one destination to
another to predicting tumor type from microarray data. In a similar
direction they propose to see how well computer simulation based
approximations to ideal prediction methods work in very complicated
models applying to situations such as voice recognition. Further
they propose to study methods of inference bearing on questions such
as whether a new drug which may be more expensive and have
side-effects is sufficiently better than drugs currently in use to be
authorized for distribution.